Research on Variational Analysis and Applications

9704751 Mordukhovich This project will support research on variational analysis and its applications. Particular areas of research will include: nonconvex generalized differentiation of nonsmooth and set-valued mappings between Banach spaces; new characterizations and applications of robust Lipschitzian stability in infinite dimensions; sensitivity analysis of solution maps for parametric generalized equations and variational inequalities; discrete approximations and optimal control of constrained functional differential inclusions; and robust control design of uncertain evolutionary systems with hard control and state constraints. Variational analysis has been recognized as an active area of modern applied mathematics that, on one hand, deals with solving large-scale optimization and related problems and, on the other hand, applies optimization and perturbation ideas to the analysis of a broad spectrum of mathematical models arising in real-life applications. In particular, one of the proposal goals is to apply variational methods to feedback control design of evolutionary systems motivated by environmental applications.